Acquisition of a EPR/ENDOR Spectrometer

Electron Paramagnetic Resonance (EPR)/Electron-Nuclear Double Resonance (ENDOR) spectroscopy allows chemists to conduct extremely precise high resolution studies on materials containing unpaired electrons (paramagnetic compounds). Such studies reveal information on molecular structure that is unavailable by any other technique. The Department of Chemistry at Princeton will purchase an EPR/ENDOR spectrometer with the help of this award from the Chemistry Shared Instrumentation Program. The areas of chemistry that will be enhanced by this acquisition include the following: 1) Metallo-enzymes and synthetic analogs in photosynthesis 2) Surface chemistry at semi-conductor and electrolyte interfaces 3) Metal-oxo and metal-peroxo intermediates in oxidative catalysis 4) The migration and trapping of exciton states in crystals by impurity ions 5) Determination of the nuclear moments of unstable isotopes of elements 6) Mechanistic studies of alpha-ketoacid dioxygenases 7) Determination of odd-electron intermediates in organometallic reagent development 8) Mechanisms in organic synthesis using transition metal ions 9) Magnetic resonance in dense low-dimensional solids 10) Metal centers in biology: hemes, iron-sulfur and copper proteins